Investigation of Low Frequency Atmospheric Oscillations Based on Satellite Data

Low frequency oscillations (LFO) of the atmosphere, a phenomenon with one-to two-month time scales, have captured the interest of researchers worldwide. Much work has been concentrated on the tropics where the effects were initially discovered. This research project will focus on higher latitudes and, in particular, the stratosphere where this group has been the first to study LFO. The research has four components: 1) Global correlation maps similar to those obtained with MSU microwave analyses (90 mb temperatures) will be calculated for infrared SSU data in the middle and upper stratosphere. 2) LFO vertical structure and propagation from the troposphere to the upper stratosphere will be studied with coherencies (in- and out-of phase correlations by wavenumber) using geopotential height fields and SSU data. Lag-correlation Hovmoller studies will be used to investigate wavepacket behavior. Tropics-higher latitude connections will be assessed with correlations between tropical microwave data and higher latitude/altitude geopotential height and SSU fields. 3) LFO energy propagation and effect on the mean flow will be investigated with Eliassen-Palm flux divergence calculations. An E-vector formulation will be used in regions of strong basic flow zonal asymmetry. Comparison will be made with model predictions. 4) Recently reprocessed mesospheric radiance data fields will be used at Oxford University to search for the existence of LFO above the stratopause. This research is important because it seeks relationships between processes in the high atmosphere and climate as manifested near the surface of the earth. Such relationships should enhance our understanding of climate and our ability to predict its variations.